Organometallic Workshop

9322037 Jennings Montana State Univ This award from the Inorganic, Bioinorganic, and Organometallic Program of the Chemistry Division will support an annual workshop in organometallic chemistry. The participants will be organometallic chemists from academia, industry, and private and government research organizations. The goals of the workshop are to facilitate communication among researchers in the different kinds of organizations and to foster the exchange of new ideas much earlier than is possible through formal publications. The format of the workshop is designed to encourage maximum participation by all attendees, and the plan for selecting attendees will ensure broadly based participation. The topics to be discussed will span a broad spectrum from synthesis of new organometallic compounds to the utilization of such compounds as catalysts or as precursors for making new materials. However, the topics of "Benign Chemical Synthesis and Processing" and "Critical Technologies" will form the overall themes of the workshop.